Summer School on Complex Systems; Santa Fe, New Mexico; June 4-29, 1990

A group of institutes, centers, and universities throughout the country will sponsor a summer school in Santa Fe, New Mexico during June 1990. The goal of the summer school is to provide graduate students and postdoctoral fellows with an introduction to the study of "complex" behavior in mathematical, physical, and living systems. The themes for this year's summer school will be: (i) the nature of chaos, disorder, or randomness in a variety of physical and mathematical systems; (ii) pattern formation in physical, chemical and biological systems; and (iii) cognition and computational approaches to brain and cognitive function. The four-week school will consist of short courses together with seminars, computer workshops, and laboratory projects supplementing the lectures. The material presented at the school is intended to be appropriate for advanced students with graduate-level training in the mathematical, physical, biological, or computer sciences and a strong mathematical background.